Development and Experimentation of a Program in Biochemistry

The biochemistry program is being updated and expanded to keep abreast of the ACS program developments and new techniques associated with biotechnology. Specific changes in our program include: (1) expansion of the biochemistry course from one to two semesters, including laboratories; (2) introduction of new experiments involving chemical and molecular biological instrumentation including new emphasis on biochemical spectroscopy; (3) early entry into undergraduate research; and (4) introduction of a biotechnology lecture and laboratory course involving hands-on experience with gene recombination procedures. Biochemical equipment acquisitions include centrifuges, electrophoresis equipment, and microbiological equipment. The grantee will overmatch the NSF award from non- Federal sources.